New Approaches to Variable Selection

In this project the investigators will develop two novel, but related,
approaches to regression model variable selection. Both procedures
make use of multiple, Monte Carlo-generated, pseudo data sets to tune
the controlling parameter alpha in a standard variable-selection
routine (e.g., alpha = "alpha-to-enter" in forward selection). In the
first approach, white noise is added to the response variable with
variance in controlled multiples, m, of the full-model mean squared
error (FMMSE). The variable selection process is run on the
noise-enhanced data, and the selected model mean squared error (MSE)
is found for each value of the selection process tuning parameter
alpha. This process is repeated for many bootstrap-type replications
and the average MSE is retained for each value of m. The optimal alpha
is determined as the value that gives, on average, the theoretically
expected mean squared error, FMMSE(1 + m), for the noise-enhanced
data. This approach has wide applicability to variable selection
procedures used with additive-error regression models. In the second
approach phony predictors are added to the data set, and the
proportion of phony variables included in the selected model for
different values of the selection process tuning parameter is
estimated. Then, by averaging over bootstrap-type replications, the
false selection rate (FSR) for the process can be estimated for the
observed data for each value of the process tuning parameter
alpha. The FSR is controlled by choice of alpha. The FSR is a very
understandable and meaningful quantity to control. This method is not
restricted to additive-error models and thus has wider applicability
than the noise-enhancement above.

Regression modeling is the most widely used statistical procedure.
Statisticians have long known that the choice of predictor variables
to use in a regression model is the most important component of
regression analysis. Yet the identification of important predictor
variables remains one of the least understood and most important open
problems in statistical inference. This is true for small to moderate
data sets with a handful of potential predictor variables, as well as
for the huge data sets with potential predictors numbering in the
thousands that are becoming more prevalent in statistical
applications. In this project the investigators develop methods for
identifying important predictor variables from a larger set of
potential predictors. The impact of the research is as broad as the
application of regression modeling. The new methods will enable
researchers in all application fields to better fit regression models
to data sets, both small and large. The range of applications is
enormous and includes, for example, genetic microarray data, drug
development data, census bureau data, financial data such as credit
card transactions or loan applications, large weather and
environmental data sets, and electric power usage data.